Interactive Materials to Stimulate Minorities Toward Engineering Careers

Creative Enterprises Abstract Creative Enterprises will develop a project to motivate minority students to prepare for careers in science and mathematics-based professions, especially engineering. The technical approach is to create interactive media, both a computer program and text based materials, to stimulate and inform the students concerning the activities of professional engineers, academic and social life in college, course requirements for both High School and College, etc. The combined media will use an "adventure" format with many possible scenarios dependent upon the student's selection, plus humor, and special effects (e.g. computer sound and animation) to sustain interest. Examples will relate the secondary school course content with the engineer's practices. The program will be conducted in conjunction with the California State University, Long Beach MESA (minority outreach) and MEP (Minority Engineering Programs), and in conjunction with Compton Middle schools (grades 6-8). A computer simulation with text accompaniments and teacher's guides will be completed and field tested in the junior high schools. The success of this model will lead to a range of materials for economical, nationwide dissemination and application on many educational levels for minorities, women, disabled, and other special and general populations.